Support for ISES Forum I, Seattle, November 2003: CyberInfrastructure and Geochronology

A one-day forum is being held In Seattle, Washington on November, 2003, to discuss changing the research and education culture of the Solid Earth Sciences (SES) through communication and integration. The forum consists of a series of updates and presentations that serve as a platform for discussion of research facilities and equipment, and identification of emerging needs in cyberinfrastructure to support research and education in the SES. The goal in facilities and equipment is to ensure sufficient infrastructure in geochemistry, particularly geochronology, to support the increasing needs of integrated solid earth sciences research, including research by students. The forum is another step down the road of synthesis and integration among the solid earth sciences disciplines. Additionally, future integrated solid earth sciences activities such as annual forums, summer schools (to educate the next generation of solid earth scientists within the new integrated science culture), summer retreats (for junior assistant professors and senior post-doctoral fellows) are being discussed. Broader impacts of forum will be to point the way to new developments in scientific infrastructure, develop new educational models for early career scientists, and formulate research priorities in solid earth sciences.